Neutron Diffraction Studies on Metal Hydride Complexes

Dr. Robert Bau, Department of Chemistry, University of Southern California, is supported by the Inorganic, Bioinorganic and Organometallic Chemistry Program of the Chemistry Division to investigate unusual systems/structures with four-, seven- and eight-coordinate hydride ligands by neutron diffraction techniques and to probe how hydrogen interacts with metallic systems. The mobility of the hydride ligands will also be investigated by the nuclear magnetic resonance method at low temperatures.

Three-dimentional structures of metallic-hydride clusters systems will be obtained. Graduate students will be trained in the synthesis of these difficult systems.